Symplectic Geometry and Schubert Calculus

DMS-0305128
Rebecca Goldin

Symplectic geometry occurs at a crossroad of combinatorics,
representation theory, physics, geometry and topology. One of the most
important examples of a Hamiltonian T-space is the coadjoint orbit of a
compact Lie group. Coadjoint orbits arise in physics, as they are the
set of all matrices with specified spectra. They also occur in
representation theory, as all irreducible representations of a complex
reductive Lie group occur as holomorphic sections of a line bundle over
a coadjoint orbit. They occur in algebraic geometry as projective
varieties. The intersection theory of naturally arising subvarieties,
called Schubert varieties, appears in questions of linear algebra,
valuation rings, and representation theory. Schubert calculus is
important as it is the linear case for (and hence the first step
towards) understanding complex algebraic intersections more generally.
Algebraically, Schubert calculus analyses the multiplicative structure
of the cohomology of flag varieties. The main open question is to find a
totally positive formula for the (equivariant) structure constants. In
joint work with A. Knutson, Goldin has discovered new techniques that
give hope for a positive formula in certain cases. Goldin is also
interested in topological invariants that distinguish reduced spaces for
any compact Hamiltonian T-space, such as certain ideals found in its
equivariant cohomology ring or generalized equivariant Euler classes.
Goldin is additionally developing techniques to calculate integrals on
certain symplectic reduced spaces using small amounts of information
about how the torus acts on the original symplectic manifold.

Understanding Schubert calculus is a small step towards the larger
question of how to study intersections of algebraic varieties. Such
intersections arise outside of mathematics, as scientists ask questions
that involve the concurrence of several physical constraints, and want
to understand what possible solutions there may be. Symplectic geometry
is a natural setting to describe physical systems. The space of the
position and the momentum of a particle, for example, is called "phase
space" and has a natural symplectic structure on it. In many cases,
there is a lot of symmetry; physical observations of the Hydrogen atom,
for example, are unaffected by the position of the observer a fixed
distance away from the particle. The study of "reduced spaces" is a way
of studying the physics while simplifying the space by ignoring (in
fact, dividing out) these symmetries. Much of Goldin's work involves
techniques to do computations on these simplified systems, which may
shed light on questions that physicists and chemists are posing about
molecules and particles. Goldin is also writing a book (joint with G.
Goldin) on myths in mathematics education.